NIRT: Semiconductor Nanowire-Based Electronics and Optoelectronics

0506902
Yu

As engineered nanoscale building blocks for more complex structures and devices, semiconductor
nanowires are particularly intriguing due to the ability to form wires from a variety of materials with
control over basic electronic properties and the beginnings of control over wire positioning and assembly.
However, a broad range of issues pertaining to synthesis of semiconductor nanowire heterostructures,
elucidation of nanoscale structure and electronic properties, processing into devices including contacts
and controlled nanowire placement, and the optimal exploitation of unique electronic, transport, and
optical behavior in nanowires for various device applications remain to be explored.
The PI proposes a comprehensive investigation of the fundamental properties of semiconductor
nanowires and their application in electronic and optoelectronic devices, focusing on the following device
applications: (1) nanowire-based transistor structures that will offer either (a) extremely low-power, highspeed operation for future logic and memory applications or (b) operation at extremely high frequencies and power densities for microwave and mm-wave circuit applications; and (2) nanowire photodiodes incorporated into structures for (a) generation of terahertz radiation, or (b) multispectral imaging based on integration of different nanowire structures on a single chip. All represent potentially major breakthroughs in device performance or functionality, while sharing common fundamental issues in
materials synthesis, characterization, and processing. The proposed team encompasses experts in
materials synthesis, advanced characterization, materials processing, and electronic and optoelectronic
devices and systems, thereby ensuring that materials and processing studies address the issues most
relevant to the device and system applications, and that device designs exploit the full range of
possibilities provided by advanced materials synthesis and processing.

Intellectual Merit: Fundamental issues in the physics of nanoscale systems and the integration of
nanostructures into realistic, high-performance devices will be addressed by a highly accomplished,
multidisciplinary team with an established, extensive record of successful collaboration. Research topics
of interest will include synthesis of novel semiconductor nanowire heterostructures; nanoscale electronic
structure and carrier transport behavior in nanowires; metallurgical, processing, and quantumconductance
issues in contact formation; design of advanced nanowire-based transistor structures for
computation and communications; and nanowire photodiodes for terahertz signal generation and
multispectral imaging. A strong educational component is envisioned, entailing the development of new
graduate course sequences aimed at a multidisciplinary student audience, a freshman seminar series,
mentoring of undergraduate students, and interaction with secondary school students via the UCSD
Preuss School, a Charter School serving high-ability but socioeconomically disadvantaged secondary
school students in the San Diego Unified School District.

Broader Impact: The proposed program will yield new capabilities and insights in nanostructure
synthesis, the physics of nanoscale structures, processing and assembly of nanostructures, and their
applicability in realistic devices and systems that will have relevance not only for the device applications
targeted here, but for research on semiconductor nanowires specifically, and solid-state nanostructures
more generally. The potential areas of impact include future logic and memory systems, high-speed
circuits for communications, and terahertz to infrared/visible imaging. Graduate students and
postdoctoral researchers will be educated in a vertically integrated, multidisciplinary setting, with major
new experimental facilities associated with Cal(IT)2 at UCSD providing new capability as well as a
unifying umbrella for this and related activities. The development of graduate-level course sequences
will further facilitate training of students in important emerging areas of science and technology, while
the proposed courses and mentoring/outreach programs at the undergraduate and secondary school levels
will help both to educate nontechnical students about scientific and technological issues and to encourage
students to pursue advanced education and careers in science and engineering.